Influence of Compaction Grout Rheology on In Situ Densification

9414543 Borden Compaction grouting is an important tool both for pre- construction ground improvement and post-construction remediation of projects in geomaterials, including tunneling, trenching, underpinning and lifeline engineering under natural hazard conditions. Although the general methodology is widely used, the methodology is empirical and basic mechanics and processes are not well understood. This research has the following objectives: 1) to develop a model to predict in situ injection geometric relationships; 2) to develop an appropriate test which can be used for the design of a compaction grouting operation; 3) to verify the model and test(s) in laboratory and full-scale field injection experiments. The result of this research will be a verified model and test procedures which will permit optimized and reliable design of soil and site improvement by compaction grouting.